Network Algorithms: Scheduling and Routing

This research involves two applications of graph algorithms; the first
regards communication in networks, the second involves solving flow
problems in structured networks. The investigators study algorithms
for finding paths connecting many communicating parties in a network.
The goal is that the paths do not overutilize any particular link in
the network. The second item the investigators will study is
the famous problem of routing the maximum amount of flow through
a network. This problem is itself interesting and has numerous
applications in fields as diverse as transportation and computer vision.

More specifically, the investigaters study low congestion routing in
networks. This problem is easy in a relaxed fractional setting but
notoriously difficult in an integral setting. Recent work has
established relationships between a cut based upper bound and the
fractional lower bound on this problem. These results will lead to
better understanding of the integral version of this problem.
Research on this problem has made use of techniques from linear
programming, randomized rounding, combinatorial graph theory, as well
as geometric embeddings of graph metrics. For the maximum flow
problem, the investigaters study ideas in a recent maximum flow
algorithm in order to extend them to the minimum cost flow problem.
The investigators also study the maximum flow problems on planar and
other restricted classes of graphs.